Project Dragonfly: An Alliance Of Scientists, Teachers, And Children For Elementary Science Education

9550538 Meyers This materials development project is the result of a joint effort by Miami University and the National Science Teachers Association (NSTA). The project will combine the resources of the Univeristy and the publication department of NSTA, to work with schools to produce an innovative science journal for children in grades 3-6, a teacher support manual, a parent support manual, and a supporting computer network that will connect children with scientists and university science students in scientific inquiry. The journal will be the first national journal devoted to research scientists and children with an outlet for publication of scientific investigations conducted by children. Given the strong record of accomplishment of the PI and the publications division of the National Science Teachers Association, the panel feel it is likely that the Dragonfly, Dragonfly Companions. the Dragonfly Net will be a quality product and recommends funding this project at a high priority level. The Program Officer agrees with the panel and recommends funding this proposal.